Examination of impact Hurricane Isabelle on 110 pre-examined North Carolina Manufactured Homes

ABSTRACT

The purpose of this submission to NSF is to fund a follow-up analysis of the bulk of 110
manufactured homes originally surveyed in 2001 for compliance with state codes for set-up.
This analysis we be done to determine the impact of Hurricane Isabelle and determine if
any potential failures were associated with the set-up deficiencies.